Tropical and Monsoon Studies

A combination of approaches, viz. theoretical and observa- tional analyses and numerical modeling, are to be used to study a variety of tropical mechanisms and circulation patterns, particu- larly in the Asia-Pacific Monsoon regions. These will include large areas of heating of the tropical atmosphere, easterly waves and tropical cyclones, the globe-girdling narrow belt of equatorial deep and intense convective activity (the Intertropical Convergence Zone, or ITCZ), and the summer monsoon trough over East Asia (Mei- Yu). The purpose is to understand the dynamic and thermodynamic structure of these flow systems, which range from the global to the regional and individual-storm scales. This understanding requires elucidation of the interactions/inter-relationships among them. These linkages are shaped by the underlying mechanisms which transfer absorbed solar energy from the tropical upper oceans to the atmosphere and ultimately convert it to the energy of motion systems of various sizes and lifetimes. The regions to be studied supply a substantial fraction of the energy put into the planetary atmosphere, and thus exert a major influence on global weather and short and long term global climate.